Conference: Singularities in Analysis and Geometry

Abstract

Award: DMS-0506270
Principal Investigator: Robert M. Hardt and Michael Wolf

Singular objects and regularity theory for potentially singular
objects have played and continue to play an essential role in all
areas of geometry, topology and analysis. The works of F. Reese
Harvey and John C. Polking, both jointly and separately,involving
the analysis and structure of singularities, have ranged widely
over all three areas. This conference, in recognition of their
scholarly and academic service, will treat important issues
involving singularities raised in their works over the last 30
years. It will focus on recent developments in singular spaces as
an outgrowth of calibrated geometries, special Lagrangian
submanifolds, removable singularity problems, and the relatively
new area of singular connections. The conference will begin with
an introductory session aimed at graduate students, recent
Ph.D.'s, and non-specialist researchers. The body of the
conference will involve topics from the wide expertise of the
invited lecturers which encompass: singularities in calibrated
geometries, exceptional holonomy, CR geometry, differential
characters, geometry of singular spaces, singularities of complex
submanifolds and varieties, extension problems for analytic
objects, geometric aspects of singular connections, special
Lagrangian theory, compactification of spaces of connections, and
regularity theory of harmonic maps, special Lagrangian
minimizers, and Yang-Mills connections. Finally one session of
the conference will be devoted to the study of a specific
implementation of technology in the classroom.

Through mathematical models of a wide variety of phenomena from
macro-economic systems, to cosmological models of the universe,
to microscopic mechanics of solids, the notion of a
"singularity" has gained prominence in the last thirty
years. It is identified with the sudden disruption in space or
time of a smooth media. It may occur at a point, as with two
colliding particles, along a curve, as with lightning, or a
surface, as with an earthquake fault, or on some higher
dimensional "surface," as occurs in multi-parameter
economic models. The basic fields in pure mathematics of
analysis, geometry, and topology, have all attacked problems of
understanding singularity formation and structure. This timely
conference, on the occasion of the retirement of two academic
leaders, brings together outstanding researchers and students
from all these fields for a synergistic exchange of ideas. Many
of the specific topics of the lectures of the conference have
both their origins in and applications to mathematical physics,
from the Lagrangian description of classical mechanical systems
(1800's) to problems in string theory (1990's). The mathematical
analysis of singularities provides important information for not
only these well-established applications but also for new
singularities arising from biological and computational problems.